The energetic assembly of biological communities: a test with deep-sea woodfalls

Changes in both terrestrial and marine carbon production under climate change necessitate an understanding of how ecological communities are structured by carbon availability, which has long been recognized as a predictor of biodiversity. Recent research indicates global marine phytoplankton production may have declined at a rate of ~1% of the global median per year. Regional-scale changes have been more heterogeneous; with the equatorial Pacific Ocean experiencing overall declines of over 50% the last decade and Polar Regions experiencing increases of comparable magnitude. Clearly, there is a strong need for a more complete understanding of the relationship between biodiversity and carbon availability to better predict the consequences of current and forthcoming climate change on marine ecosystems. One challenge is that determinants of available carbon in natural systems are diverse and often unidentifiable. Wood-fall communities in the deep sea are an ideal experimental system for testing many theories about carbon availability and biodiversity. First, the amount of carbon available to the community can be precisely manipulated in the form of wood mass. Second, flows of carbon from wood through the community can be easily tracked because animals supported by wood have distinct chemical signatures that can be traced with stable isotope analysis. Finally, the entire community associated with a wood fall can be sampled, allowing for accurate estimates of biodiversity, biomass, and energy flow. For these reasons, study of deep-sea wood falls provides accurate and simultaneous quantification of standing stock, diversity, and trophic structure as a function of energy availability. Through the use of ROV/submersible-deployed wood falls, the project will test how changes in carbon availability impact marine biodiversity. The results of this project will be beneficial to science in several ways. First, the project contributes significantly to climate change and biodiversity research and specifically to knowledge of the underexplored deep oceans. The project also creates abundant opportunities for public outreach. The multifaceted approach includes: employing web podcasts and blogs; sharing results through photographic exhibitions; and actively recruiting from minority-serving institutions while also providing visiting lectureships. Further, the project will recruit and train young scientists in underrepresented groups, and impact multiple audiences from primary education students, science instructors, and the general public.

The goal of this project is to identify the interactions in energetic processes that regulate community structure, using ROV/submersible-deployed wood falls. Wood will be deployed in varying sizes to control the amount of chemical energy added to the community, and of different wood densities to examine assembly rules while examining total quantity and concentration of resources. This approach will allow the investigators to examining energetic tradeoffs is that multiple impacts, hypotheses, and theories of varying carbon availability on biodiversity can be evaluated simultaneously. The amount of carbon in the community can be precisely manipulated, an improvement over prior studies. The impact of the rate of carbon uptake on ecological processes will also be examined here, but has been rarely evaluated. This research will also reveal much about wood-fall biomes in the deep sea, one of the least studied systems in the ocean. For example, the project will reveal the relative importance different carbon pathways in exporting wood energy and controlling biodiversity.